Impact of UV-B Radiation of Pelagic Freshwater Ecosystems: A Workshop

9316534 Williamson Recent global decreases in stratospheric ozone induced largely by anthropogenic release of chlorofluorocarbons have led to a corresponding increase in ultraviolet radiation that is potentially damaging to natural ecosystems. While the most serious changes have been in polar regions, little is known about how either freshwater ecosystems or higher trophic levels may respond to changes in ultraviolet radiation. This workshop will proposed to gather international experts in ultraviolet-B radiation and freshwater ecosystems. The workshop will assemble scientists to assess what is known and what needs to be known about how ultraviolet-B radiation influences freshwater ecosystems. A priority list of critical research objectives with a special focus on higher trophic levels will be developed. The meeting will evaluate current instrumentation and biological dosimeter techniques for quantifying ultraviolet-B radiation in the water column, provide a special lecture series to students and faculty from area universities, and encourage collaboration from different disciplines, countries, and regions. The proceedings will be published as a special volume of the journal Archiv fur Hydrobiologia. ***